EMT/Nano: Biomimetic Self-Assembly of Functional Nanostructures for Computing and Communications

EMT: Biomimetic Self-Assembly of Functional Nanostructures for Computing and Communications

The properties of DNA, particularly its capacity for reliable and programmable molecular recognition, have led to the birth of the field of DNA-based nanotechnology. Recent experimental successes in DNA-guided self-assembly include the ordering of matter with unprecedented accuracy and parallelism, nano-scale organization of metal particles and proteins, along with fabrication of highly conductive metallic nanowires. The proposed project focuses on the use of complex, self-assembled DNA superstructures based on DNA “tiles” as templates for the fabrication of programmable nanoscale electronic and plasmonic components and wiring. This research will impact nanoelectronics and nanophotonics research with potentially profound implications for the future of computation. This project fits very well with the stated goals of the EMT program especially in its mandate “to enable radical innovations in... computing and communication systems through the support of projects that capitalize upon research opportunities at the intersection of computing and biological systems, nanoscale science and engineering”.